Undergraduate Faculty Enhancement in Molecular and Cellular Biosciences for Mississippi Colleges and Universities

9353972 Middlebrooks Five one week long Molecular and Cellular Biosciences workshops will be conducted under the supervision of the project's Coordinating Committee by chairs or co-chairs who are recognized as experts within the topical area of the workshop. Each of these workshops will feature lectures pertinent to the topic by nationally recognized scientists (these lectures will be open to general audiences). Other workshop activities will include demonstrations, topical discussions, as well as participation in hands-on laboratory experiments. Participants (20 for each workshop, selected by the Coordinating Committee) will be eligible to compete for "minigrants" of up to $1,000 to develop lecture or laboratory material or methods for incorporation of information presented into their curricula. Workshop co-chairs will be available for follow-up visits to institutions in the coalition. At the conclusion of the project, a two-day Reunion Workshop will be held, at which participants from all workshops will be invited to make presentations or participate in discussions describing the various ways in which information and skills learned via the workshops have been incorporated into their curricula. ***